Workshop on Cumulus Parameterization

The object of this work is to organize and hold a workshop on the topic of cumulus convection, particularly its mathematical and physical formulation, an urgent issue in current meteorological theory. Approximately 30 participants have been identified to discuss the topic, which should ensure a comprehensive treatment.